Massively Parallel Scientific Computing: Architectures, Networks and Applications

Massively parallel computers show promise in several computational areas. In this project a commercial massively parallel computer is being used for several large-scale computational problems, including the architectural simulation of the P3, a proposed experimental massively parallel computer. Other applications of the commercial machine come from physics, chemistry, and discrete mathematics.